Crustal Deformation Measurements in Ethiopia and the Afar Triple Junction

The Red Sea, the Gulf of Aden and the East African rift zone meet at a complex triple junction within the Afar lowlands of East Africa. The PI will measure the instantaneous velocities of all three plates at this triple junction using GPS geodesy supplemented locally by a three color geodimeter. The rate of African rifting , is an ideal target for a newly developed three- color laser geodimeter that has the range and precision to yield extension rates within a few years. The proposed investigations will complement French GPS investigations in Djibouti and Afar. The PI has received a formal invitation to undertake the Ethiopian study from the Government of the People's Democratic Republic of Ethiopia.